Research Initiation Award: Characterizing Fracture and Repair of Human Bone

This Research Initiation Award is made to study how cracks grow and repair themselves in human bone. The fracture toughness indices will be determined for both opening and shearing modes.